Exposing Undergraduates to Computer Vision

The University of Florida has a strong research group in the area of Computer Vision. Undergraduates at the university, however, currently have no exposure to this increasingly important field of study. They plan to offer an upper level undergraduate course in Computer Vision to familiarize students with this area. It is their contention that without access to near-realtime computer processing and display capabilities, such a course has little relevance; it is critical that one learn what the qualitative and quantitative behaviors of various computer vision algorithms are by directly manipulating high resolution imagery. Their current equipment holding prohibit them from offering such a course to a reasonable size class (twenty of so) of undergraduates. To support this coursework, they are seeking funds to purchase a small group of workstations. These workstations will be used for laboratory support of the undergraduate computer vision class. The class and laboratory work envisioned will give undergraduates an opportunity to bring together many of the concepts that have been conveyed to them in their mandatory course work in a fascinating field of study.